Materials and Teacher Development in Precollege Education

The University of Chicago School Mathematics Project is in the process of developing and implementing in the classroom a comprehensive K-12 program designed to upgrade mathematics education for all elementary school students and for the majority of secondary school students who are in the middle achievement range. An up-to-date curriculum, emphasizing problem solving and applications, is being written and tested in Chicago area schools. In its elementary (K-6) component, the project seeks to reduce the amount of time devoted to teaching computational skills, introduce more geometry and statistics, and use calculator arithmetic to aid instruction and expand the teaching of applications of mathematics. Initial funding for the project has been provided by the Amoco Foundation. Additional funding, to assist in supporting the secondary component, has been provided by the Carnegie Foundation. NSF funding will help support the elementary component. The project will field test the elementary school mathematics materials that are being developed, including calculator workbooks, problem solving workbooks, and workcards designed to guide students in the independent use of a variety of manipulatives. It will develop a model for the teacher training necessary to assure successful use of the developed materials. The model will focus on training generalist teachers for grades K-3 and specialist teachers for grades 4-6. A teacher training package will be prepared for use by mathematics supervisors, coordinators, and others who wish to adopt the training program.